Simulating Macroscopic Quantum Effects of Exciton-Polaritons at Room-Temperature

Arkajit Mandal of Texas A&M University is supported to develop theoretical and computational approaches to simulate room-temperature macroscopic quantum effects in molecular systems coupled to confined radiation inside an optical cavity. When molecules and materials are placed between two reflective mirrors separated by hundreds of nanometers, forming an optical cavity, they interact strongly with the confined radiation, leading to the formation of hybrid light-matter quasiparticles called exciton-polaritons. Exciton-polaritons have been observed to exhibit a wide range of exotic quantum behaviors at room temperature, including long-lived quantum coherence and coherent ballistic transport, offering a promising platform for the development of quantum technologies that remain robust at ambient conditions. Dr. Mandal and his research group will develop scalable computational approaches that will enable simulations of exciton-polaritons involving macroscopic numbers of coupled degrees of freedom under experimentally relevant conditions. Using these approaches, they will uncover how these quantum effects arise and how they can be tuned. By advancing the understanding of quantum light-matter interactions, this work will contribute to the foundations of quantum information science (QIS) and next-generation quantum technologies. Beyond research, Dr. Mandal will train undergraduate students in modern quantum science and will pursue outreach activities designed to build intuition for quantum concepts among broader audiences.

Dr. Mandal and his group will develop efficient many-body quantum dynamical approaches that go beyond the single-excitation subspace to simulate light–matter hybrid systems with macroscopic numbers of coupled degrees of freedom and to provide microscopic insight into exciton-polariton dynamics and transport. First, they will develop many-body quantum dynamical approaches that integrate on-the-fly electronic-structure outputs to propagate exciton-polaritons and apply them to explore the fluence dependence of nonadiabatic (polaritonic) photochemical dynamics. Second, they will develop microscopic theories to quantify decoherence, relaxation, and propagation of exciton-polaritons, benchmark them against ab initio simulations, and apply them to quantify photonic coherences and correlations. Together, these theoretical and computational developments will provide a general set of tools to investigate material architectures for polariton-based quantum devices, discover strategies for enabling new chemical reactivity, and provide predictive understanding of emergent quantum phenomena arising from light–matter interactions.